Integrating Science with Mathematics and Engineering: Linking Home and School Learning for All Young Learners

Children in preschool programs have few opportunities to engage meaningfully in science, technology, engineering, and mathematics (STEM) disciplines. This is especially true in programs serving children from low-income communities, where resources are scarce. This study will investigate the integration of science with mathematics and engineering and develop resources that provide preschool children with integrated STEM learning experiences. The study will also investigate the connection between home and school learning and will develop resources that strengthen children's experiences at school and home. This will include investigating the needs of and designing for dual language learners who represent a large (and growing) proportion of the population served in public preschool programs. This project is funded by the Discovery Research preK-12 program (DRK-12), which seeks to significantly enhance the learning and teaching of STEM by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

Using design based research (DBR), the researchers will: (1) Develop learning blueprints to guide the design of classroom and family learning resources. (2) Co-design resources with teachers and parents from low-income as well as culturally and linguistically diverse communities. (3) Conduct a series of formative pilot studies with partner teachers and parents. (4) Conduct a quasi-experimental field study in preschool classrooms and homes to examine both implementation and learning outcomes. Data sources will include observations in classrooms and homes, surveys and interviews with teachers and parents, and child learning assessments. Analysis will include qualitative approaches to examine patterns of interaction and engagement with resources in classrooms and homes, as well as quantitative approaches to examine children's learning accounting for the multilevel structure of the data. The project involves a collaboration between Digital Promise Global, Education Development Center, WGBH and multiple early childhood programs in California and New York. A total of 28 preschool centers, 56 classroom teachers, 208 families and 560 children are expected to participate. Results from this project are intended to inform understanding of how young children learn STEM, how adults at school and home can support children's early STEM learning, and what supports are useful to diverse learners specifically. Results could also highlight design principles that can inform future early STEM education research and development efforts integrating media and technology.